Doctoral Dissertation Research: Spatial and Temporal Configurations of Potential Distributions of Grassland Sparrows

One problem that has vexed biogeographers and others interested in the distribution of different species is the difficulties that many species have in adapting when their habitats are changed by human activity or other forces. A related problem is the difficulty in monitoring the number and distribution of these species. One such species is Henslow's sparrow (Ammodramus henslowii), a grassland-nesting bird that is found in the central U.S. and nearby parts of Canada. This doctoral dissertation research project will take a multifaceted view of Henslow's sparrow distributional biology, focusing on improving understanding about how populations respond to broad-scale habitat changes and of the extent to which human activities affect the amount and distribution of its breeding habitat, particularly in Midwestern grasslands. Henslow's sparrows currently have a distribution that is patchy and local; although the limits of the species' range are perhaps well-known, existing surveys are largely confined to roads. Current information therefore may neither represent all available habitat, such as grasslands in airfields, military bases, and reclaimed surface mines, nor does it accurately estimate population trends. No detailed map of suitable habitat for the full breeding distribution currently is available. The doctoral student will use ecological niche models to produce a detailed distributional understanding by identifying key environmental variables and characterizing the amount of suitable breeding habitat and its spatiotemporal dynamics within a patch-matrix framework while taking into account landscape heterogeneity and habitat patch characteristics produced by year-to-year disturbance dynamics. Once these models have been validated through independent field surveys, year-to-year variation of the extent and arrangement of suitable patches will be analyzed. This analysis will provide insight and explanation for the broad-scale nomadic behavior documented in earlier studies of the breed. These models also will be used to evaluate how well current survey techniques function to sample Henslow's sparrow breeding habitat. The student will evaluate these models by summarizing the amount of suitable grasslands in patches immediately surrounding routes identified by the North American Breeding Bird Survey and by comparing it to the broader distribution of this habitat (produced by the niche models) and the proportion of habitat types within the landscape matrix (using land-cover maps).

Henslow's sparrows have very specific nesting habitat requirements that make them relatively good indicators of healthy tallgrass prairie ecosystems. Like many other obligate grassland species, they have suffered severe habitat loss as a result of fragmentation and conversion of grasslands, a loss estimated to have exceeded 99 percent across North America. Unlike a few other species that adapted easily to these changes, Henslow's sparrows have not responded well across their breeding range, and they have exhibited significant population declines over the last century. Recent studies have shown that this species does not return consistently to patches of habitat from year to year, which makes management of their habitat more difficult. This project will make significant contributions to the assessment of Henslow's sparrow populations and trends. The project also will provide a test of the capability of current survey techniques to effectively survey rare species and spatially limited habitat types. The project also will facilitate evaluation of recommendations for habitat management that more effectively accommodate the nomadic behavior as well as the amount, distribution, arrangement, or disturbance dynamics of this habitat at landscape scales. The results of this project therefore will potentially affect how species like Henslow's sparrows are managed and will prompt reevaluation of population trend estimates or habitat availability for other, similar species. As a Doctoral Dissertation Research Improvement award, this award also will provide support to enable a promising student to establish a strong independent research career.